Modification of the Catalytic Action of Cyclodextrin Glucanotransferase by Genetic Site-Directed Mutagenesis

Glucosylases are ubiquitous in nature and form the basis for several industrial processes. Therefore, greater understanding of the catalytic structure of these biocatalysts has both scientific and commercial importance. The objective of this work is to provide information about the structural- functional relationships of these biocatalysts to enable the engineering of biocatalyst performance and specificity. The model system to be investigated is cyclodextrin glucanotransferase (CGTase). CGTase and other glucosylases (e.g. alpha amylase, glucoamylase and alpha glucosidase) share regions of primary sequence homology, which have been implicated as the catalytic site for these enzymes. However, whereas all these enzymes promote the hydrolysis of alpha 1,4- glucans, only CGTase promotes significant reformation of glycosidic linkages. This study will examine the effects of changing specific amino acids within the CGTase catalytic site that are not homologous with corresponding residues in alpha amylase. The goals of performing such substitutions are to: 1) ascertain if these residues are the determinants of the re- ligation catalysis and , 2) determine if biocatalyst product specificity can be altered. Mutations will be created by genetic site-directed mutagenesis techniques and transformed into E. coli. Mutant biocatalysts will be characterized by their catalytic activity and product specificity on maltodextrins, starch and beta cyclodextrins.